CAREER: Automated Synthesis of Compound Machines Using Computational Design Optimization

Computer algorithms have been used to automatically generate and optimize designs for everything from aircraft wing structures to cardiovascular stents. However, these algorithms are typically limited to the design of single-body structures, with all motion occurring by means of structural deformation. This limits the complexity of the designs that can be synthesized, preventing the design of multi-body systems containing several moving parts. This Faculty Early Career Development Program (CAREER) project will advance the science of automated computational design by creating new algorithms capable of generating and optimizing multi-body systems. Starting with only a mathematical description of design materials and physical environment, the algorithms will automatically generate assemblies for compound machines that combine multiple basic components such as levers, hinges, wheels, and axles, which together form the foundation of all mechanical design. This work will enable a new level of automated computational design not previously possible under existing design frameworks. The knowledge obtained from this research will benefit a wide range of applications including nanoscale mechanisms for delivery of medications and self-reproducing robotic systems. The project also involves an integrated education program featuring a STEM Pipeline program for undergraduate students from underrepresented minority groups. The program includes bi-weekly labs and seminars, team design projects, and K-12 outreach activities.

The algorithms created in this project will rely upon several novel design formulations devised specifically for the design task. Chief among these will be an original topology optimization-type framework in which the internal topologies of multiple planar design domains are optimized simultaneously, while also optimizing the connectivity between adjacent domains to form compound mechanisms whose components can slide and rotate freely with respect to one another. The mechanical behavior of the designs will be modeled using a combination of finite element analysis and flexible multibody dynamics to capture the rigid body motion and the elastic deflection of the system components. Additionally, adjoint sensitivity analysis will be used to derive and compute the design sensitivities that will power the gradient-based optimization algorithms. The new design framework will be validated via high-fidelity computational simulations, as well as through fabrication and experimental testing. This testing will be used to quantify the efficiency of the generated designs, as determined by their mechanical and geometric advantage.